U.S.-Korea Cooperative Research on Constraint Methods and Inference Engines for Expert Systems

9404905 McAloon This award provides funds to permit Drs. Kenneth McAloon and Carol Tretkoff, Department of Computer and Information Science, Brooklyn College of The City University of New York, to pursue with Dr. Geun Sik Jo, Department of Computer Science and Engineering, Inha University, Korea, for 24 months, a program of cooperative research on constraint methods and inference engines for expert systems. The goal of this collaboration is to build a new kind of programming tool for formulating and controlling the solution of complex operations research and artificial intelligence applications. This project has three immediate aims: (1) developing new algorithmic and logical control strategies using 2LP (Linear Programming and Logic Programming), MIP-Prolog (Mixed Integer Programming in Prolog), and related systems, (2) linking rule-based programming and constraint-based programming to achieve new advances in expert systems technology, (3) making the underlying logical and mathematical compilation more efficient, and (4) exploiting the knowledge representation power of constraint programming to make this technology more broadly applicable and usable. The proposed research is at the confluence of several disciplines: constraint logic programming, operations research, artificial intelligence, mathematical logic, and distributed computing. This research will emphasize increasing both the modeling power and the computational power of this technology in order to include more varied and more challenging applications. The collaborators have considerable complementary research experience in the field of their proposed project. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean particip ation in the project is supported by the Korea Science and Engineering Foundation (KOSEF). This project adds an international cooperative dimension to the PI's research under NSF Grant No. CCR-9115603. ***